Higher-dimensional Shifts and Ergodic Convergence

Proposal Number: DMS-0200703
PI: Anthony Quas

ABSTRACT

The work will focus on the areas of higher-dimensional shifts of
finite type and almost everywhere convergence in ergodic
theory. Higher-dimensional shifts of finite type are symbolic
dynamical systems whose points are arrays of symbols from a finite
alphabet satisfying certain adjacency rules. While there is a
well-developed theory for one-dimensional shifts of finite type, the
general situation for higher-dimensional shifts has been very
unclear. Recently a number of organizing concepts have started to
emerge and it is hoped that these will lead to a satisfactory theory
for at least some reasonable collection of higher-dimensional systems.
Birkhoff's theorem is concerned with the effects of averaging a
sequence of measurements of a system taken at equal time
intervals. The result then states that in the case of a
measure-preserving transformation, for almost every initial condition,
the time averages are convergent. Further, the limit is identified if
the transformation is ergodic. The work will focus on variations to
this scenario where the measurements are taken at varying
intervals.

The higher-dimensional shifts of finite type that will be studied are
of relevance in designing efficient data storage schemes. Due to
physical restrictions on storage media, in many cases certain patterns
of binary digits cannot be reliably written and read back from digital
storage media. In these cases, it is necessary to encode the data so
as to ensure that the encoded data does not contain any of the
forbidden patterns of binary digits. This applies to magnetic tapes, but also to conventional hard disks, where data is stored in a number of tracks, all separated from
one another. It is likely that in order to continue the growth in the
amount of data that can be stored on a single device, it will be
desirable or maybe even physically necessary to consider
two-dimensional storage schemes. Efficient methods for doing this
will depend on a good understanding of the properties of
higher-dimensional shifts of finite type. The almost everywhere
convergence results lie at the intersection of a
number of diverse areas of mathematics: probability, dynamical
systems, ergodic theory, number theory and harmonic analysis. It is
hoped that progress made in this area will have knock-on effects in
the other disciplines.